Improved Engines and Fuels Through Studies in Knocking Combustion - Part II

This study is aimed at understanding engine knock and also understanding the workings of anti-knock materials. Modern laser diagnostics will be used in this investigation. The problem of engine knock is an old one and has not yet been understood. The present research, if successful, should have significant commerical implications.